Travel Support for Students to Attend 2019 DAMOP Conference, May 27-31, 2019 in Milwaukee, WI.

This award provides travel support for student participation in the 2019 meeting of the APS Division of Atomic, Molecular and Optical Physics. The conference program includes many of the research topics central to Atomic, Molecular, and Optical Physics and Quantum Information Science. The support of students through this award makes a substantial contribution to the education and training of future scientists. Students who graduate with a background in atomic, molecular, and optical physics acquire a broad range of knowledge and skills that enable them to contribute to progress in many areas of science and technology.

The meeting is scheduled to be held in Milwaukee, Wisconsin May 27 through May 31, 2019. It offers an opportunity for students to present their research results and to interact with senior scientists primarily from the United States, but also the broader international community. Support is provided only for US students (students enrolled in US universities).